Seismic Investigation of the Kaoiki Fault Zone: The Origin of Large Earthquakes in Hawaii

This research investigates the cause of major earthquakes on the volcanic island of Hawaii, a timely and controversial question. The seismic method is to record on both permanent and temporary seismometers the waves from local and distant earthquakes to outline the extent of the buried sediment layer at the volcanic pile-ocean crust interface. If this layer coincides in depth with the low-angle-faulting earthquakes observed in the Kaoiki Fault Zone, the results will support the hypothesis that major earthquakes are slips along this zone. Because this research deals directly with earthquake hazard, it is a contribution to the National Earthquake Hazard Reduction Program.